MRI: Acquisition of a Complete Whole Arm Manipulator (WAM) Robot System

EIA-0079830
Desai, Jaydev P.
Drexel University

MRI: Acquisition of a Complete Whole Arm Manipulator (WAM) Robot System

The goal of this work is to acquire a whole arm manipulator (WAM) robot which will greatly enhance the development of the medical robotics program, combining haptic and visual information for object exploration in unstructured environment. The robot will also be an invaluable tool for developing and testing novel nonlinear control models at Drexel University. The equipment will also have significant impact on the undergraduate and graduate education at Drexel in the mentioned research areas.